SBIR Phase I: A Microservices Approach To Low-Latency Process Interaction Through Distributed Ledgers

The broader impact/commercial potential of this Small Business Innovation Research (SBIR)
project is to make unique properties of Distributed Ledger Technology (DLT) widely available to
developers. In doing so, the company will empower developers to create novel distributed services with
trustworthy and consistent shared state operations that will lead to more transparent business
and governance practices. In the Phase I tools will lead to new innovative meat
distribution businesses in Bozeman, MT. In the long term, we aim to build the fundamental tools
for the growing ranks of blockchain developers, who need powerful and easy-to-integrate tools
that access and manipulate DLT state. Ultimately, our suite of services will provide a unified
interface to multiple DLT implementations and facilitate the trustworthy exchange of shared
state among different applications to create a wide and consistent view of world state.

This SBIR Phase I project proposes to create an ecosystem of tools to operate on shared
application state stored on DLTs and to roll out these tools as they mature. The ultimate goal is
to provide a unified API much like that of leading cloud service providers, which consists of
several incrementally introduced services.
Specifically, the services planned to provide are:
1. Blocky Valve - A JavaScript API that simplifies DLT read and write access.
2. Blocky Pipes - A DLT data delivery microservice based on message queues connected
to Blocky Valve.
3. Blocky Loading Ramp - A continuous integration and continuous delivery (CI/CD) service
of smart contracts.
4. Blocky Cement - An oracle service for exchanging data across DLTs using
consensus-based provenance. Cement will also enable interaction between smart
contracts across different DLTs.
5. Blocky Crates - A database-like query interface to data stored on DLTs. Crates will also
enable smart contracts to interact with up-to-date shared application state stored on
DLTs.